POWRE: Development of Raman Probes for Cancer Detection Using Near-Infrared Raman Spectroscopy

9806047
Mahadevan-Jansen
The objective of this research is to construct and characterize two new probes to be used in surgery for the detection of brain tumor tissue (surface probe) and pre-cancerous tissue in the ovary (endoscopic probe). The feasibility of the probe design will be evaluated using a tabletop experimental system and standard materials. Final probes will be tested in vivo using an appropriate animal model. This research is appropriate for the POWRE program because it will permit the principal investigator to establish an independent research program following a maternity leave of absence for 6 months before starting her position as a research associate.
***